Web-based Computer Aided Interpretation of Analytical Sedimentation Data

Sednterp is a computer program designed to enhance the interpretation of analytical ultracentrifugaton data. The program was first developed as a collaboration between the University of New Hampshire and Amgen researchers over ten years ago. Currently, Sednterp exists as a VisualBasic program and it has enjoyed wide use by the analytical ultracentrifuge community. Now in use for more than eight years, Sednterp has proven to be a popular and useful tool. It is, however, becoming dated in its functions, and there have been numerous requests for additional functionality. A new Web-based version of Sednterp could enable users around the world to share information, and would provide a good opportunity to incorporate many of the additional features requested by users.

The research and programming work will be conducted for the Industry/University Cooperative Research Center for Bimolecular Interaction Technology at the University of New Hampshire.